Enriched Modeling of Auctions and Bidding

Standard models of auctions need enrichment in order to be applied in realistic contexts. Many common but neglected factors invalidate the advice that current auction theory offers to bid- takers and to bidders. This research will augment bidding theory in several realistic directions and isolate sources of divergence between theoretical predictions and laboratory observations. One thrust of the research replaces the usual assumption of a fixed number of bidders with endogeneous determination of bidder participation based upon the probability of competing. We indicate when the usual revenue comparisons are confirmed and when they are reversed. Another thrust will include several realistic models of cheating and rule bending in auction models. One model allows bidders to submit multiple bids and withdraw a `winning' bid when it is advantageous to do so. A third thrust will examine various formats for the sequential or simultaneous sale of multiple assets examining how auction form may influence bidders' strategies and the values of the assets. A fourth thrust examines information flows between bidders during the course of an English auction and how those flows affect strategies and the values of the assets. A fifth thrust reconsiders the standard assumption of symmetric bidders to see which comparative static predictions are robust to asymmetries.